FORENSICS: The Science of Criminal Investigation

The Fort Worth Museum of Science and History in Texas will develop a 4,000 square-foot traveling science exhibit on FORENSICS: The Science of Criminal Investigation for circulation to eight major U.S. Cities through the Science Museum Exhibit Collaborative (SMEC). FORENSICS will examine the scientific methods and technologies used in today's crime labs. Core science areas are: DNA profiling; Fingerprinting; Firearms Identification; Evidence Collection; Composites; Forensic Anthropology; Forensic Entomology; Forensic Geology; Odontology; Pathology; Serology; toxicology; Trace Evidence. The development of FORENSICS will draw from the expertise of a distinguished panel of forensic scientists, law enforcement officers, and science educators. FORENSICS will foster science process skills, problem-solving, and deductive reasoning by challenging visitors to solve a crime mystery. A Teacher's Resource Guide to the exhibit will promote indepth classroom investigations of forensics for middle grade (5-9) science lessons. The exhibit will open in Fort Worth in May of 1993, and then tour nationally to eight major U.S. cities, serving over 2.5 million American citizens during its SMEC travel itinerary.//